The SuperCDMS Operations Program

The SuperCDMS Collaboration seeks to directly detect dark matter in our galaxy and answer fundamental questions about its nature, including what kind of particle it is, what its astrophysical properties are, and how it relates to the Standard Model of particle physics. To achieve these goals, the Collaboration is completing construction of the SuperCDMS SNOLAB experiment at SNOLAB in Sudbury, Canada. The experiment uses advanced cryogenic detectors that are highly sensitive to the tiny nuclear recoils expected from dark matter interactions. SuperCDMS SNOLAB will search for dark matter interactions at rates approaching the fundamental sensitivity limit set by solar neutrinos, often referred to as the "neutrino fog."

This award will support the SuperCDMS Collaboration and participating university groups as they complete commissioning of the experiment and begin full scientific operations. The supported work includes: (1) operating the experiment through Science Run 1 to maximize data collection and achieve the project's science goals; (2) identifying and reducing sources of radio-frequency and electromagnetic interference (RF/EMI) that can affect detector performance; (3) performing in situ calibrations and low-energy detector measurements at supporting test facilities; (4) maintaining data-quality monitoring systems and analysis pipelines; and (5) training the next generation of scientists through hands-on participation in operating the experiment.